The Social Construction of GIS: Software, Data, and Results

University of Washington This research attempts to better understand the importance of social construction in GIS: how the social context shapes the technology and use of GIS, in particular exploring commonly held assumptions about GIS, technology, and their connection. This work argues that technical GIS issues can only be understood as a result of social processes and practices, and in turn how these same practices must affect the technology of GIS. The investigator proposes three case studies: the first with construction of software packages that drive GIS (topology); the second with the construction of data bases using GIS, using a wetlands example to show how standardization has failed; and, the third with analytical procedures used in applying GIS to complex decision-making.